Analysis on Fractals

Abstract
Strichartz

Analysis on fractals studies the properties of functions defined on
fractals, centering on certain analogs of differential equations. On a
limited class of self-similar fractals it is possible to construct
operators that play the role of the Laplacian, one of the central
objects in traditional analysis on Euclidean spaces and manifolds.
This project will attempt to extend the construction of Laplacians to a
broader class of fractals, and to explore the fundamental properties
of these Laplacians and other differential-type operators. In addition,
this project will attempt to broaden the connections between this new
area of research and more traditional areas, including global
analysis, harmonic analysis, splines and the finite element method,
pseudodifferential operators, and special functions. This project
includes collaborative work with undergraduate students (REU) on
computer experiments to explore examples and generate
conjectures. It is expected that this experimental work will lead to
deeper theoretical understanding of the subject.

Scientists in diverse areas have realized that many objects in the
real world can be modeled by fractals. In order to study physical
processes on such fractal objects, it is necessary to develop a
mathematical theory that will give the analog of differential equations
on fractals. Such a theory is in the early stages of development, and
this project will contribute to that development, bringing to the
problem ideas and techniques from other areas of mathematics. It
is expected that this project will develop tools that will be of use to
applied mathematicians and scientists, since part of the project
focuses on numerical methods and algorithms for solving concrete
problems. The contribution of undergraduate students to the project
will be significant, and in turn will be a positive educational
experience for the students.